IDA/WG: Visualizing Women in Mathematics, the Physical Sciences and Technology: The Role of Personal Choice and Inspiration in a Scientist's Life

HRD-9622321 This information dissemination award project, Visualizing Women in Mathematics, the Physical Sciences, and Technology: The Role of Personal Choice and Inspiration in a Scientist's Life, targets young women, particularly at the high school level. The project is to result in a series of gallery-quality posters of women in SEM, a study guide targeted at high school girls with biographical information about those depicted, along with educational hands-on activities related to their respective fields of expertise, and other educational resources. Information in the study guide is to be part of what is to available on the World Wide Web. Short videotape interviews with the women also are to be produced. The project seeks to humanize the image of science and the scientist to encourage young women students to see science and research as possible careers for them. The use of high quality, attractive and accessible contemporary art and graphics, along with the use of other media, is expected to further the perception of science and technology as inviting, exciting, rewarding career choices for women.